Essential Laminations

Proposal: DMS-9971333

PI: Rachel Roberts

Abstract: Professor Roberts proposes to study
essential laminations in 3-manifolds. There are
two main directions of investigation. The first
involves working at better understanding
nonexistence of essential laminations, both
through understanding group actions on
order trees (in collaboration with Professor M. Stein) and, more
directly, through
the use of
``standard forms''. The second
involves searching for constructions which
give new information about exceptional
surgeries on knots and links.

In this research, Professor Roberts investigates
questions concerning the structure of 3-manifolds,
which are spaces formed by piecing
together blocks of 3-dimensional space according
to certain rules. Globally, the spaces obtained
are usually quite complex and model many
interesting phenomena. Our spatial universe,
for example, is a 3-manifold which it is
crucial to understand. The study
of 3-manifolds is also important in the
study of the knotting and linking of strings
in 3-dimensional space, which in turn is
important in the study of the structure of DNA.